Modeling and Diagnostic Studies of the Tropical 40-50 Day Oscillation

Weather and climate exhibit some degree of periodicity, not 100% of course, for in that case predictions would be a much less difficult problem. However , a significant fraction of the variability of the tropical climate, for example, is attributable to wavelike motions (travelling "disturbances") with periods of 40-50 days. This grant supports research which attempts to model the 40-50 day oscillations and study the seasonable variability of its structure. The research will also explore the dynamics of the response of the seasonal climate of the middle latitudes to this tropical oscillation.